Bennett College Summer Science Camp

Bennett College offers a six-week Summer Science Camp for fifty local African-American seventh through ninth grade minority youth on the Bennett campus. The camp and academic year follow-up activities feature classroom, laboratory and enrichment activities, provide self-paced mathematics and sciences instruction, individualized tutoring, outreach services, mentoring, life management skills development, parent involvement and appropriate support systems and utilize audio-tutorial and computer assisted instructional techniques.